National Invasive Species Monitoring: A Citizen Science Project -- A Planning Grant

The Chicago Botanic Garden, in collaboration with five major botanic gardens, will plan a citizen science invasive species monitoring program that will engage participants in active, meaningful data collection on populations of invasive plants at a national scale. The planning team will identify effective program approaches based upon front-end and formative evaluation and a professionally facilitated planning workshop involving prominent scientists, botanic garden professionals and informal science educators.